Engineering Research Equipment Grant: Upgrade of LDV Systemfor Turbulence and Combustion Research

In this work on the structure of turbulent flames and on unsteady and corrugated laminar flames, information on the velocity field is needed. This funding is for an upgrade of a laser Doppler velocimetry system to greatly enhance the importance of the results of the research.